Oceanographic Technical Services, 2009-2011, R/V Cape Hatteras

Duke University proposes to support technical services on R/V Cape Hatteras, a 135’ general purpose UNOLS research vessel operated by the Duke/UNC Consortium as part of the University-National Oceanographic Laboratory System research fleet. They request support for basic services only. They will provide one technician on each seagoing research project of R/V Cape Hatteras to support seagoing research projects and to maintain, calibrate and provide for qualified users items from their pool of shared-use research instrumentation. The budget in this proposal is for the first year of a 3-year continuing grant.